New Transition Metal Oxides Near Localized-Itinerant, Insulator-Metal Transitions

9725979 Cava The discovery of high temperature superconductivity in complex copper oxides led to the widespread realization that the relationships between the chemistry, crystal structure, and electronic and magnetic properties of transition metal oxides was understood at only a cursory level. Due to the presence of strong interactions between the d electrons, and the interactions between the electrons, magnetic spins, and the underlying atomic lattice, the usual band structure based picture (which, for example, does not include the effects of electronelectron correlations) often can not properly describe the observed electronic and magnetic properties. This research program in solid state chemistry has the goal of discovering new complex oxides with exotic electronic and magnetic properties due to their proximity to insulator-metal transitions. Two classes of chemical compounds are considered in detail. The research program consists of: (1) The discovery and characterization of new ternary and quaternary ruthenium oxides, oxyhalides, and related compounds. Taken as a whole, previous studies strongly suggest that ruthenium and oxygen represent one of the pairs of atoms in the periodic table for which unusual physical properties result due to the characteristics of the metal-oxygen bond and the types of crystal structures which occur when compounds with ternary elements are formed. (2) The discovery of new copper oxide superconductors and related materials with low-dimensional copper- oxygen arrays. This program searches for new copper based oxides synthesized at high oxygen pressures, in which the copper-oxygen plane does not have the usual Cu02 checkerboard geometry. New materials are sought in which the CuO geometry is electronically "simpler" than the Cu02 plane. The characterization of these materials will allow direct comparison to the predictions of models for the behavior of quantum mechanical spin systems, an area of intense theoretical activity, whic h many believe may hold the key to the microscopic mechanism of high temperature superconductivity . %%% Many of today's technological systems are based on the use of sophisticated electronic materials. As those systems increase in complexity, the types of materials they are based on also increase in complexity. This project uses the methods of solid state chemistry in the search for new materials at the borders of our understanding of the fundamental relationships between the chemistry, crystalline structure, and electronic and magnetic properties of solids. Two promising classes of transition metal oxides will be studied, with the hope that the insight gained will ultimately help define the future directions of both condensed matter science and electronics technology. ***